Conference: NSF EPSCoR National Conference: Connecting and Collaborating to Keep Science Flowing

Nebraska EPSCoR will host the 28th NSF EPSCoR National Conference in Omaha, Nebraska. The conference theme is "Know. Grow. Flow. Connect and Collaborate to Keep Science Flowing," where the conference will focus on engaging participants to gain a better understanding of scientific innovation, economic development, and stakeholder engagement in research capacity building. Conference sessions will include topics on applying convergence science to protect resources, developing collaborations for broadening participation in STEM, overcoming research challenges, advancing jurisdictions' economic development via research, and growing professional development of project participants. The conference will also serve as a platform for attendees to learn more about NSF EPSCoR and other NSF funding opportunities.

The 28th NSF EPSCoR National Conference will engage audiences from different research areas and geographic jurisdictions. Target audiences will include state legislators, congressional representatives, federal employees, jurisdictional project directors and administrators from the 28 EPSCoR states and territories, members of state EPSCoR committees, and scientists, junior faculty members, and students. The conference program will include platform and poster sessions. The University of Nebraska Lincoln Bureau of Sociological Research will conduct evaluation on behalf of Nebraska EPSCoR. This conference will explore new ideas, build collaborations, and gain new skills will result in increased research and education capacity in EPSCoR jurisdictions across the nation.